TWC: Student travel grants for Symposium On Usable Privacy and Security 2014

The Symposium On Usable Privacy and Security (SOUPS) brings together an interdisciplinary group of researchers and practitioners in human computer interaction, security, and privacy. The program features technical papers, workshops and tutorials, a poster session, panels and invited talks, and discussion sessions. The tenth SOUPS will be held July 9-11, 2014 at Facebook's headquarters in Menlo Park, CA. The funds support travel grants for students to attend the conference. SOUPS is the top conference devoted to usable privacy and security. By increasing student participation at the SOUPS conference, it may encourage more students to get involved in usable security research and pursue further graduate education and careers in this area.